Computer Science, Engineering, and Mathematics Scholarships Program

These scholarships target recruitment and retention of low income, high achieving high school and community college students to study computer science, engineering and technology (CSET) at Texas A& M University. Eighty scholarships are funded over the two year program. The Program combines financial aid, industry mentors, peer mentors, and seminars. These support activities offset deficiencies in financial and social capital that negatively impact recruitment and retention of high academic potential, high financial need students in CSET fields in the university.